Closed-Form Angle Estimation with Circular Arrays/Apertures for Mobile/Cellular Communications and Surveillance Radar

The digital communications industry is currently investing a plethora of resources towards the development and experimental verification of prototype antenna arrays to be deployed on mobile communication vehicles, including the commercial automobile of the future, as a means of discriminating amongst signals co-located in frequency based on their respective spatial locations. Given the small aperture on a mobile communications unit, the uniform circular array (UCA) geometry is ideal due to its rotational invariance with respect to azimuth. This research is based on a recent breakthrough by the principal investigator: the development of a simple, closed form algorithm for use in conjunction with a UCA that provides automatically paired source azimuth and elevation angle estimates. In contrast, the algorithms for 2D arrival-angle estimation to date have required expensive spectral searches, iterative solutions to multidimensional optimization problems, or ad-hoc schemes for pairing direction cosine estimates with respect to each of a number of different array axes. Note that UCA-ESPRIT is fundamentally different from ESPRIT in that it is not based on a displacement invariance array structure but rather is based on phase mode excitation and hinges on a recursive relationship between Bessel functions. A theoretical performance analysis of UCA-ESPRIT is being conducted. This will prove extremely useful for predicting its performance in a mobile communications environment. Novel strategies for incorporating mutual coupling effects are being developed as well. The real world performance of UCA-ESPRIT will be assessed with experimental data from a prototype circular antenna array currently being built at the Polytechnic University of Madrid for mobile sea communications with the INMARSAT satellite system. Adaptations of UCA-ESPRIT for filled circular arrays are also being developed.